Supporting Student Travel to 2013 ACM Conference on Computer and Communications Security (CCS 2013)

This award is to support student participation in the annual ACM Symposium on Computer and Communication Security conference (CCS), to be held November 4-8, 2013.

The ACM Conference on Computer and Communications Security (CCS) is the flagship annual conference of the Special Interest Group on Security, Audit and Control (SIGSAC) of the Association for Computing Machinery (ACM). The conference brings together information security researchers, practitioners, developers, and users from all over the world to explore cutting-edge ideas and results. It provides an environment to conduct intellectual discussions. From its inception, CCS has established itself as a high standard research conference in its area.